NBER Summer Institute, Cambridge, MA, July 2009, July 2010 and July 2011

This grant provides renewed funding for the participation of junior faculty in the NBER Summer Institute. For more than twenty five years, NBER's Summer Institute has offered an ideal environment for developing new ideas and forging collaborative work relationships. Summer Institute brings together economists and scholars in other fields from universities, government, and international organizations for a few days or a few weeks of seminars, workshops, conferences, and cooperative research.

The Summer Institute is four weeks long, and includes at least 40 sessions organized and co-organized by over 80 individuals. There are more than 1,750 attendees from over 300 universities and non-academic institutions, and in 2008 more than 64% of the individuals who attended Summer Institute were not NBER affiliates. While there are many presentations of work nearing completion, emphasis is placed on the workshop aspects of the program where new ideas are raised, preliminary research ideas are developed, and plans for joint or coordinated research efforts are established. Efforts are made to include a wide variety of new participants, and to reach out to women and minorities. Calls for papers are circulated widely and are available on the NBER website.

In 2007 NBER inaugurated a new feature at the Summer Institute, a two-day mini-course entitled "What's New in Econoemtrics." The course is intended to update researchers on the latest techniques in econometrics. The feedback was very positive and NBER held a second-mini-course in 2008 focusing on time-series.

Broader Impacts: The NBER Summer Institutes generate timely and influential research on important economic policy questions related to such topics as international financial stability, economic productivity and technology, enviornmental regulations, social security policy, and educational policies. The workshops are an invaluable part of the research infrastructure in ecobnomics and assist the research of a large number of economists.